Influence Of Industrialization On Social And Economic Security (U.S.-Egypt Cooperative Science; Science In Developing Countries)

Description: This proposal supports the collaboration of Drs. Saad Z. Nagi and Sharon K. Houseknecht, Ohio State University (OSU), and Dr. Mohamed Abdel Aal, Cairo University, Egypt. The purpose of this collaboration is to study the influence of industrial development on social and economic security arrangements in Egypt. Project funding will allow Dr. Houseknecht to visit study communities in Egypt and to participate in discussions with their leaders and for Dr. Aal to analyze data for a period of time at OSU with Drs. Houseknect and Nagi. Dr. Nagi, as Principal Investigator, will provide overall project supervision. Scope: This proposal brings together research scientists from two countries working in the area of Egyptian socio-economics and culture. It is anticipated that this collaborative research will result in a report on the influence of industrial development on social and economic security arrangements in Egypt. The Egyptian scientist, Dr. Aal, will gain experience in the application of advanced statistical techniques and be exposed to sophisticated methods of research during his stay at OSU. Conversely, Dr. Houseknecht will get an opportunity for cross-cultural research experience and her exchanges with Egyptian researchers will be highly beneficial to her future research and instructional endeavors. Therefore, this proposal fulfills the objectives of the Science in Developing Countries program in its exchange and transfer of scientific knowledge through an international collaboration.